Digital Design Laboratory Equipment

This project is improving and upgrading the Electronics Engineering Technology laboratory in order to provide undergraduate students with high quality laboratory experiments and exercises in the area of Digital Design and Advanced Microprocessors. The ultimate aim is to improve student understanding of basic and advanced digital/microprocessor technology by providing quality education in this field. To meet the challenges of the digital industry and to better prepare students for the "real world", it is essential that students should be well-versed in the use of commercially available digital CAD tools (including hardware description languages) and modern workstations. This affords students the opportunity to see the conceived hardware as a working model. The project is replacing the old Digital Design course with two new courses, Digital Design 1 and 2, and adding a third course in Advanced Microprocessors. The addition of these courses is significantly strengthening and improving the entire curriculum in electronics engineering technology. Other courses including Advanced Electronics 1 and 2, the Senior Capstone Technology Project, and Automatic Controls & Instrumentation also directly benefit from this project. The laboratory contains six modern workstations, four PC 's, four logic analyzers, and four In-Circuit Microprocessor Emulators. This project has the potential to advance scientific education beyond the local setting.